A Supercompiler with Recursive Restrictions on Configuations

A supercompiler is a program transformer of a certain type. It traces the possible generalized histories of computation by the original program, and compiles an equivalent program, reducing in the process the redundancy that could be present in the original program. This may lead to a deep restructuring of the program and a great increase in its efficiency. A single supercompiler program can serve as a powerful partial evaluator; as a converter of multi-pass scanning algorithms into one-pass algorithms; as a means of program verification and theorem proving. The underlying language used is Refal. The tracing of computation histories is done by operations over the graph of states and transitions of the abstract Refal machine. The states are configurations of the Refal machine. In the current supercompiler a configuration is a combination of nested function calls with the values of free variables restricted by a Refal equivalent of certain inequalities. These restrictions are, however, nonrecursive. This work will upgrade the system so as to allow arbitrary recursive predicates as restrictions on configuration variables. The supercompiler so improved will be then used for a wide range of practical and theoretical problems, such as partial evaluation, automatic construction of compilers, functional inversion, and theorem proving.